Mathematical Sciences: Topics in Dynamical Systems: Attractors, Dimension, Lattice Models

Professor Pesin will study the stochastic behavior of trajectories in smooth dissipative dynamical systems with singularities having attractors which are close to classical hyperbolic attractors. The object will be to describe the geometric structure of the attractors by calculating their dimension like characteristics. The principal investigator will also consider the appearance of space-time chaos in the lattice models which are constructed as a chain of strongly hyperbolic dynamical systems. This research involves random dynamical systems. These systems are used to model the behavior of large numbers of interacting particles and therefore the potential applications are significant. Previous work of Professor Pesin has recently become important because it gave considerable information on the dimension parameters of the attractors of the system. There is an indication that the current research will also find immediate application.